U.S.-Vietnam Cooperative Research: Reconstructing the History of the Song Hong (Red River), Vietnam

OISE-0439414
Clift

This is a U.S.-Vietnam cooperative research project between Dr. Peter Cliff, Woods Hole Institute of Oceanography and Professor Nguyen Anh Duc, Vietnam Petroleum Institute to reconstruct the history of the Song River, Vietnam. They proposed to analyze sediment sources from a core consisting 6 age intervals from a petroleum borehole in the Honai Basin, Vietnam. This is a sophisticated approach using Nd isotopes to study an important question in Asian tectonics. The results can provide useful information on the effect of Himalayan uplift on this river delta. This cooperation provides a good start for the limited interaction between the geophysical communities in the U.S. and Vietnam.